Semantics of Computation

This project will continue research on the semantics of computation. The emphasis during the coming period will be on methods for proving the correctness of compilers. The use of higher-order assembly language rather than combinators as a model of a compiler's target code allows great flexibility in the architecture of the compiler's abstract machine; this flexibility will be used to prove the correctness of a variety of different environment and code representations. A second thread is a continuation of work on strong typing for object-oriented systems; here a variety of issues concerning subtyping and coercion will be studied.